The Model Theory of Valued Fields with Analytic Structure

Lipshitz and Robinson propose to continue their collaborative investigation
into the model theory of valued fields with analytic structure. Classical
rigid analytic geometry is based on rings of strictly convergent power series,
i.e., power series convergent on products of "closed" discs. The proposers have
introduced new rings of power series convergent on products of "closed" and
"open" discs. These rings of separated power series share many of the
desirable algebraic properties of the smaller rings of strictly convergent
power series. In addition they are particularly well suited for model
theoretic applications. Lipshitz and Robinson propose to continue to develop
the commutative algebra of rings of separated power series and the corresponding
rigid geometry in analogy to the classical case. On the model theory side they
propose to broaden their investigation to consider the model theory of
non-algebraically-closed valued fields with analytic structure and also to
consider questions of uniformity over different fields in the theory of rigid
subanalytic sets. The methods to be employed come from model theory,
commutative algebra and algebraic geometry.

The sets of points in Euclidean space over the field of real numbers defined
by systems of equations and inequalities among analytic functions are called
semi-analytic sets. This class of sets is basic to analytic geometry. The
projection (i.e. the shadow) of a semi-analytic set on a lower dimensional
subspace is called subanalytic. There are more subanalytic sets than
semi-analytic sets, and their behavior is more complicated. There is a
natural interest in subanalytic sets. These are exactly the sets that can be
mathematically defined from the semi-analytic sets, in the sense of formal
logic. Furthermore, real subanalytic sets arise in several branches of
mathematics such as differential equations and geometry. Similar classes of
sets arise naturally, for example in number theory, over fields different from
the real numbers, where the notion of distance has rather different properties.
Such fields are called non-Archimedean. The corresponding subanalytic sets,
however, share many of the nice properties of their real cousins. Lipshitz and
Robinson will continue their investigation of the properties of these non-Archimedean
subanalytic sets, using methods from mathematical logic, commutative algebra and
algebraic geometry. Having developed key elements of theory in the Non-Archimedean
case, they propose to apply their ideas to extend the classes of fields to which
these results apply. In particular, they plan to apply ideas developed in
the non-Archimedean setting to the real case, thereby enlarging the class of
real sets whose nice geometric properties can be established by these means.
Since many of the procedures used to extract geometric information about
these sets do not vary from field to field, the also plan a careful study of the
nature of this uniformity.